Twenty-Third Midwest Probability Colloquium

The 23rd Midwest Probability Colloquium will be held at the University of Chicago, on October 19-20, 2001. This is a regional meeting with a limited number of talks and plenty of opportunity for interaction among the researchers. It has a strong tradition of encouraging graduate students and other young investigators to attend and interact with specialists.